Logical Frameworks for Making and Justifying Arctic Development Decisions: Russian and US Approaches

Society's need to manage Arctic natural resources presents a pressing and distinctive case for a methodology to integrate conflicting economic, social and environmental considerations. This project will compare Russian and American approaches to decision analysis and will focus on an enviromental concern affecting all Arctic nations and calling for joint solutions: the past and potential contamination of the Arctic and the impacts of industrial development on northern regions and societies.